NERC-NSFGEO: Observing orographically-influenced moisture transport through the international research program SnøTroll

This is a project jointly funded by the National Science Foundation’s Directorate for Geosciences (NSF/GEO) and the National Environment Research Council (NERC) of the United Kingdom (UK) via the NSF/GEO-NERC Lead Agency Agreement. This Agreement allows a single joint US/UK proposal to be submitted and peer-reviewed by the Agency whose investigator has the largest proportion of the budget. Upon successful joint determination of an award recommendation, each Agency funds the proportion of the budget that supports scientists at institutions in their respective countries. The SnøTroll project is part of a large international research effort called Antarctica InSync. The Antarctic ice sheet contains about 70% of the Earth’s fresh water and 90% of its ice. The amount of ice in Antarctica is primarily controlled by how much snow falls on the ice sheet and how much ice is melts and is lost into the ocean. One of the greatest uncertainties in the balance of Antarctic ice is how much snow falls in East Antarctica. Moisture and precipitation that reaches the interior must rise over the steep slope at the edge of the ice sheet, called an escarpment. This project will increase understanding of how the escarpment acts as a gateway of moisture to the interior of Antarctica. It will do this by deploying equipment along the slope of the escarpment, from low to high elevation, and on different types of surfaces, rock, ice and snow. The equipment will allow researchers to track moisture and precipitation from the coast to the interior. The goal is to provide novel data for evaluating and improving the performance of weather and Earth System models.

Antarctica contains enough freshwater to raise global sea levels by 70 meters, and nearly all of it arrives as snowfall. The sparsity of observation means the amount of snow that falls across the continent, particularly in East Antarctica, is still poorly understood. This knowledge gap represents one of the largest uncertainties in global sea-level rise projections. SnøTroll is a collaborative research project of researchers from the UK, Norway, and the United States that will improve understanding of atmospheric processes in Antarctica’s escarpment regions. These steep and complex landscapes, characterized by a heterogeneous landscape of snow, bare rock, and blue ice, play a key, but poorly understood, role as a gateway for moisture and energy transfer between the Southern Ocean and the Antarctic interior. Escarpments influence weather patterns, snowfall, and surface melt. SnøTroll will leverage observations from the newly deployed, year-round Integrated Cloud Observatory, established in February 2025 at Troll Station by the Norwegian Polar Institute and research collaborators. SnøTroll will build on this foundation by deploying an advanced network of additional sensors, both ground-based and airborne, designed to fill critical observational gaps and address three key topics: 1) the complex surface of the escarpment region influence weather conditions, 2) impacts on cloud formation and snowfall, and 3) assessing whether current weather and climate models accurately represent these processes.